Stereospecifc Solvation Studies

This grant in the Analytical and Surface Chemistry Program is the logical extension of Dr. Pirkle's long-standing program in the development of CSPs, chiral stationary phases, often known as "Pirkle Phases." The PI proposes to develop new CSPs for the analytical and preparative scale separation of beta-blocker-like and nonsteroidal, antiinflammatory chiral organic compounds. A new type of CSP, called "multi-tined" is proposed that will have controlled spacing between the selectors on the backbone of a chemically bonded stationary phase. Preparative-scale separation schemes are also proposed based on nonchromatographic, batch processes and hollow-fiber membrane separation techniques. The proposed research is vitally important to the pharmaceutical industry which is always searching for new, more economical methods for the separation of enantiomeric materials. %%% Professor Pirkle and his students will develop and prepare new chromatographic stationary phases for the separation of chiral materials especially moities of interest to the pharmaceutical industry.